Committee on Atomic, Molecular, and Optical Sciences

This award provides support for the activities of the NRC Committee on Atomic, Molecular, and Optical Sciences (CAMOS). The function of this committee is to monitor the health of atomic, molecular, and optical sciences in the United States, which it does through various mechanisms.